II-EN: CUNY Computing Research Infrastructure

The College of Staten Island of the City University of New York (CUNY) plans to add a new Cray system, code-named Cray-Baker, to its existing set of machines to exploit the advantages provided by Partitioned Global Address Space (PGAS) programming languages, such as Co- Array Fortran and Unified Parallel C. The significance of this project is that it allows CUNY and collaborating researchers to jump-start academic research in the development of PGAS-based applications by acquiring the first such system, outside of the National Security Agency and Department of Energy.
City University of New York (CUNY) investigators use high performance computing (HPC) to simulate electro-mechanical coupling in the heart to understand how acquired disorders, such as myocardial infarction, and genetic diseases, result in abnormal heart rhythms. CUNY investigators also use HPC to model the ability of urban structures to withstand the effects of blast from explosive devices. The new HPC system with its advanced programming models and support for low-latency global communications accelerate these research activities. Collaborations with noted national and international researchers are supported.